Neural Bases for Olfactory Redundancy

Baker 9309948 Pheromones are chemical compounds secreted for the purpose of chemical communication, with a well-known example being the airborne odorants secreted by female moths to attract males from great distances. Insects detect pheromones by specialized receptor cells in the antenna that are considered to be among the most specific chemosensory receptors known. But in some moth species, the female emits extra compounds considered redundant components along the with active pheromone itself, and males have some receptors sensitive to pheromones that also are sensitive to compounds not emitted by their own females. This project combines neurophysiology, anatomy and behavior to pinpoint the neuronal basis for the behaviorally expressed olfactory redundancy, and to explore how specific attractant odors from plants also may modify the response to attractant pheromones at both the cellular and the behavioral level. This system provides a unique opportunity to clarify how odor blends of different compounds can apparently smell similar to an animal, and how the chemical context of an odor affects the response to that odor. Further, the presence of mutant strains with changed pheromone blends allows considering how the reduncancy allows an evolutionarily important flexibility to the communication system. This work will clarify how the olfactory connections within the brain are organized to handle mixtures, and so will have an impact on chemosensory studies in general. The work also will clarify aspects of the evolution of chemical communication, and because this species is a significant crop pest, will have impact on agricultural use of insect control. ***